Community for Advancing Discovery Research Education (CADRE) 2018

This project from the Community for Advancing Discovery Research in Education (CADRE) will provide assistance to Discovery Research K-12 (DRK-12) projects in areas such as research and development methods, implementation, and analysis procedures; synthesis of findings across the portfolio of projects; and national dissemination of the R&D contributions of the DRK-12 program. This Design and Development project will strengthen the capacity, advance the research, and amplify the impact of DRK-12 projects and researchers working in the assessment, learning, and teaching strands. Through this effort, CADRE will advance the goals of the DRK-12 program in preK-12 formal STEM education by responding to the continuing need for communication, collaboration, and innovations among DRK-12 awardees and between awardees and the education system. The DRK-12 program seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM)by preK-12 students and teachers through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

CADRE's goals to strengthen the capacity, advance the research, and amplify the influence of over 300 active DRK-12 projects and associated researchers are designed to contribute to improvements in preK-12 STEM education. During this project, CADRE will continue its work in three main areas: (1) building the DRK-12 community, (2) connecting awardees in support of knowledge generation, and (3) connecting to the larger community of education research, policy, and practice. CADRE seeks to bring together (virtually and in-person) diverse audiences to contribute to and benefit from the work of DRK-12 projects, thereby further increasing engagement in evidence-based STEM education. CADRE will work to ensure that the knowledge and products produced by and with DRK-12 projects are broadly accessible to a varied group of stakeholders. CADRE will disseminate the research, models, resources, and technologies--both within the program and outside--to the broader education practitioner, research, and policymaking communities. In addition, CADRE, through its early career program, actively seeks to support next generation scholars and increase the capacity of a diverse group of researchers to participate in and contribute to improving education.